LivePhoto Physics: Digital Videos for Lectures and Assignments

Physics (13) The LivePhoto Physics project is developing a collection of digital video
analysis materials for introductory physics courses, using research-based development
methods that were refined through projects such as Tools for Scientific Thinking
and Workshop Physics. These materials include videos, lecture demonstration
sequences, homework assignments, instructor notes, and software. In digital video
analysis, students use computers as laboratory instruments to make measurements
on video images of real events. These techniques are being used increasingly in
physics courses, and there is evidence that they are effective in teaching physics
concepts. In spite of the wealth of mass-media and educational videos available that
can be used in laboratories or student projects, very few existing videos are ideal for
analysis by students. The LivePhoto Physics project is
meeting this need by producing a collection of digital videos that span many of the
topics covered in a one-year physics course, including videos made with high-
speed/slow-motion equipment that is not available at most teaching facilities. An
innovative aspect of the project is that the topic selection is being guided by the
results of physics education research. Written curricular materials using the videos
in Interactive Lecture Demonstrations, distance-learning exercises and extended
homework problem sets are being produced and classroom tested in a three-year
research-based development cycle. Field testing is taking place at two-year colleges
and four-year colleges/universities with diverse student audiences. Computer
software that extends the display and visualization capabilities of digital video
analysis is being developed during the project. The final set of videos, curricular
materials and software will be published in the form of a CD. The LivePhoto
Physics project is addressing the need for faculty development and the integration of
technology in education by sponsoring six workshops on the use of digital video
analysis in physics teaching.